PYI: The Representation of Attitudes

Attitudes are mental and neural states of readiness to respond to objects and events in the social world. The traditional areas of research in attitude theory have included attitude management, attitude development, attitude structure and function, attitude change (persuasion), and the relationship beetween attitudes and behavior. Contemporary attitude research relies heavily on the use of verbally or semantically-based measurement techniques (the self-rating scale). This researcher is investigating aspects of attitude that do not make contact with the verbal knowledge system. The initial phases of this research will focus on assessments of attitude that do not require verbal reports. Special emphasis will be placed on the measurement of affective or emotional components of attitude, using techniques such as Ekman's Facial Action Coding System, and the analysis of voice quality as an indicator of vocal affect expression. As part of this research, the Principal Investigator is studying rational versus emotional control of blood donor behavior (with partial support from the American Red Cross). Although people often provide rational explanations for their failure to donate blood, nondonation behavior is best predicted by emotional components of attitude. The products of this research will simultaneously aid the Red Cross in their recruitment of blood donors, and contribute to an important area of social psychological inquiry.